NeTS - NR: Design and Evaluation of Multihomed Networks

Multi-homed networks are typically consisting of a number of access links be-longing to several distinct service providers. Many networks in the Internet are becoming multi-homed because multi-homing has the potential to improve availability and robustness, improve end-to-end application performance, re-duce operational cost of a user's network, and improve competitiveness of ser-vice providers. In this research project, the researchers will design architecture, algorithms, and protocols for multi-homing to contribute to the efficient opera-tion of multi-homed networks, which are becoming a critical component of the national information infrastructure. This research also aims to develop and dis-tribute a software tool to evaluate key perspectives of global, heterogeneous networks consisting of adaptive single-homed networks, multi-homed networks, and overlay networks.